Dissemination of Information from Sixth International Congress of Mathematical Education

The International Congress on Mathematical Education (ICME) is the most important forum for exchanges of scientific information among scholars in mathematics education. The Sixth ICME will be held on July 17 - August 3, 1988 in Budapest, Hungary. Given the current crises in mathematics education, it is essential that the United States be well represented by key mathematics educators and that information about the Congress be widely disseminated among our nation's mathematics educators and educational leaders. The National Council of Teachers of Mathematics (NCTM), with the support of the Mathematical Association of America (MAA), will select 40 delegates to ICME-6 whose travel will be partially subsidized and who will submit a written summary of the Congress activities. Those reports along with invited papers by selected individuals will serve as a basis for a monograph on Congress activities that will be published by NCTM. Articles will be prepared by the Awards Committee to be submitted for publication in NCTM and MAA newsletters and journals with a combined circulation of nearly 70,000. Presentations on Congress proceeding will be arranged at various NCTM meetings. The necessity to gain mathematics education on a global basis cannot be too strongly emphasized. Problems in education appear to be more universal than previously thought. The sharing of solutions among nations is vital if we are to develop the most effective cures in mathematics education. Attendance at this Congress by mathematics educators from the United States and subsequent publications will provide invaluable information to those persons concerned with the current state of education in mathematics, an area of significance in future political and economic areas.